I/UCRC Planning Grant: Safety, Security and Rescue Robots

A planning meeting will be held to determine if Drexel University will become a research site of the existing Industry/University Cooperative Research Center for Safety, Security and Rescue Research Center (SSR-RC). This center brings together industry, academe, and public sector users together to provide integrative robotics and artificial intelligence solutions for activities conducted by the police, FBI, FEMA, firefighters, transportation safety officials, and emergency responders to mass casualty-related activities. Drexel University is well postured to provide expertise in unmanned aerial vehicles, civilian medical response to bioterrorism and applied communications and intelligent networking.

Safety and security robotics will provide proactive technologies to permit disasters, either natural or man-made, while rescue robotics will enable more effective responses to mass-casualty incidents. It will nurture an emerging field of research and the associated industries, helping to establish the challenges of the field and acceptable research and evaluation methodologies.